ROW: Investigation of Geomorphic Processes Active on Alluvial Floodplains During Inundation

The objective of the proposed work is to acquire the data needed to determine field sites for tests of a conceptual model that describes the geomorphic processes active on a floodplain during inundation. To determine the study reaches for field reaches for field investigations, from June 10 December 1991, the literature on hydrologic, sediment transport, geologic, geomorphic, and vegetative characteristics of domestic and foreign alluvial rivers will be compiled. Data regarding the hydrologic and sediment transport characteristics of rivers during overbank flooding and the relation between floodplain topography and the depths of inundating flows will be especially sought.